Leveraging Natural History Collections to Advance Biodiversity Knowledge and Riverscape Genetic Patterns in Freshwater Ray-Finned Fishes of the Afrotropical (River Niger) Basin

Freshwater fishery resources provide essential food and livelihoods for millions of people and play a key role in sustaining global biodiversity. Tropical freshwater ecosystems support a large proportion of the world’s known freshwater fish species, with ray-finned fishes representing the dominant and most diverse group of freshwater vertebrates. Within these tropical freshwater systems, Afrotropical rivers are globally recognized as centers of exceptional fish biodiversity, yet they remain among the least comprehensively documented. Across much of the Afrotropics, ray-finned fish faunas remain poorly sampled and taxonomically understudied, suggesting that substantial diversity is still undocumented. These knowledge gaps limit the ability of scientists, educators, resource managers, and conservation practitioners to understand and protect this biodiversity. This project will advance understanding of freshwater fish biodiversity by focusing on the River Niger Basin, one of the largest and most biodiverse river systems in the Afrotropics and among the 20 longest rivers in the world. The project will use museum specimens and multi-year field collections to produce a validated inventory of ray-finned fishes in the River Niger Basin, evaluate the taxonomic status of putatively undescribed taxa, and improve understanding of how tropical freshwater fish biodiversity is generated and maintained. It will also support the development of a laboratory module for a graduate-level course in biodiversity sciences at Howard University and the creation of an online course on fish natural history collections, digitization, and integrative taxonomy to build capacity among early-career researchers in the U.S. and the study region. The project will serve the public interest by promoting scientific progress, strengthening biodiversity knowledge, supporting education and workforce development through capacity building, and expanding publicly available resources for freshwater fish biodiversity assessment, monitoring, systematics, evolutionary biology, and food safety.

The project will integrate natural history collections, morphology, molecular systematics, and comparative riverscape genomics to address two major goals. Specifically, using museum holdings and multi-year field collections, the project will assemble a natural history dataset of over 4,000 specimens representing on the order of 400 morphospecies. Leveraging these resources, the project will generate a comprehensive, validated inventory of ray-finned fishes across the River Niger Basin and resolve the taxonomic statuses of 12 putatively undescribed taxa using an integrative framework that combines morphometric and multi-locus molecular analyses. In addition, the project will examine how spatial genetic beta diversity (differences in genetic composition among populations) of the fish fauna is structured across the biogeographically complex River Niger Basin network and test whether the spatial genetic beta diversity is shaped by riverscape features, species traits (dispersal capacity and spawning strategy), or their interaction. In the course of this work, all specimens will be digitized using high-quality 2D imaging and made available in open-access platforms, along with meta-data and protocols. Specimens will be deposited in public repositories to support research and education. Thus, the project will produce taxonomically validated datasets for global biodiversity repositories, strengthening resources for research in systematics, biodiversity science, and evolutionary biology.